Number Theory and Allied Topics

Abstract for award DMS-0355390 of Brownawell

This project focuses primarily on establishing function field
analogues of major conjectures in transcendence theory which are
currently far out of the reach of methods in the classical setting of
the complex numbers. The first step (joint with Papanikolas) will be
the analogue of the converse of the Shimura-Deligne relations on the
periods of abelian varieties. This will extend joint work with
Anderson and Papanikolas precisely determining the linear relations on
monomials in special Gamma values. Other topics will involve
independence of divided derivatives of periods, transcendence and
variation of characteristic through powers of a fixed prime, and
investigation of applications of interpolation matrices. Another
direction will be to approach Nesterenko's theorem for Ramanujan's
functions based on the investigator's independence criterion. Lastly,
a ``final'' version of the arithmetic Liouville-Lojasiewicz inequality
is planned.

As has been understood since the middle of the nineteenth century,
rational functions in one variable behave amazingly like the rational
numbers. Questions in this setting are fascinating in their own
right, and often they are easier to resolve than their classical
analogues. This project pursues an extension in several well-defined
settings in function fields of the basic premise of all transcendence
investigations since Hermite: There are no surprising algebraic
relationships. By that we mean that all algebraic relationships
between numbers that one might care are consequences of some extremely
basic underlying structure.